MRI: Acquisition of Analytical Instrumentation for a State-of-the-Art Proteomic Facility at Rice University

CBET-0723039 Gonzalez The use of proteomics tools in the projects described in this proposal will generate fundamental knowledge and facilitate applications ranging from the production of biofuels
to the discovery of novel pharmaceuticals. The establishment of this facility will also foster
interdisciplinary interactions and enhance both research and education in natural sciences and engineering. This facility will provide much needed proteomics capabilities to Rice researchers and to external users, which, in turn, will promote collaborations with other institutions. The latter is already taking place: two faculty members at the University of Houston and Prairie View A&M University are participating in the proposal. Prairie View A&M University is a minority-serving institution and as such the proposed facility will attract researchers and students from underrepresented groups pursuing advanced degrees in science and engineering, and will improve the quality of their research training. The facility will play a key educational role by training undergraduate and graduate students and postdoctoral research associates in cutting-edge techniques in systems biology.